RUI - Research in Hadron Spectroscopy

This award covers experimental Elementary Particle Physics research by a group at the University of Massachusetts Dartmouth in collaboration with other NSF and DOE supported scientists. The group will finish the analysis of two experiments at Brookhaven National Laboratory and participate in the construction and operation of a third, a major upgrade of the multiparticle spectrometer at Brookhaven in order to study mesonic states with unusual quantum numbers.